U.S. GLOBEC: Long-Term Moored and Lagrangian Measurements as Part of a Georges Bank Study

9313670 Brink The GLOBEC NW Atlantic/Georges Bank observational program is planned to last for 4.5 years, beginning in 1994. As part of this effort, Dr. Brink and colleagues will deploy three moorings throughout the period at the Bank center, on the northwestern end, and on the south flank. All moorings would measure currents, temperature, conductivity, phytoplankton proxies (fluorescence and light transmission) and photosynthetically available radiation. Most deployments will use acoustic Doppler current profilers which also allow estimates of zooplankton stocks. The central mooring will be equipped with a complete suite of meteorological sensors. This project will also deploy Argos tracked drifters on each of the broad scale hydrographic cruises. The drifters will provide quantitative estimates of water residence times and preferred exit sites from the Bank. This measurement program will provide continuous records of the physical and biological status of waters over the Bank, and a context for all other measurements made during the GLOBEC Georges Bank study. The data base will be used to understand the effects of advection and stratification on the plankton population over the Bank. ***